Student Travel Support for the CGO 2013, HPCA 2013, and PPoPP 2013 Symposia Co-located in Shenzhen, China

This award will support student travel to three co-located conferences: the International Symposium on Code Generation and Optimization (CGO 2013), the International Symposium on High-Performance Computer Architecture (HPCA 2013), and the ACM SIGPLAN Symposium on Principles and Practice of Parallel Programming (PPoPP 2013). The conferences are being held in Shenzhen, China in February 2013. These conferences are top-ranked in the fields of architecture, compilers and parallel programming. Supporting student travel to attend professional conferences and workshops is a very important mission of the NSF. Broader impacts include building the next generation of researchers in this research area, as well as providing international experiences to build a globally-aware workforce.